Development of Advanced Diagnostics and Their Application toJet Diffusion Flames

Laser diagnostics can provide accurate measurements with temporal and spatial resolutions essential to establish a scientific base for understanding fundamental combustion processes. It is proposed to conduct phase specific, multiple-point and multiple-component measurements of a unique nondriven periodic jet diffusion flame. The data obtained will provide insights into the dynamic structure of such flames, including an assessment of the chaotic aspects. Planar flow imaging including laser induced fluorescence, reactive Mie scattering and soot Mie scattering will be employed to characterize the relationship between the flow and flame. Multiple-point temperature measurements using thin filament pyrometry and planar LIF thermometry will be developed and applied to jet diffusion flames. Techniques for simultaneous imaging of the temperature soot and multiple species will also be investigated as a means of quantifying the interaction of the flame and flow vortices. This project brings together specialties in laser diagnostics from industry and specialties in combustion from a university. The project is a continuation of a research program to study the dynamic structure of jet diffusion flames involving scientists and engineers from the Air Force Wright Research and Development Center, the National Institute of Standards and Technology and The University of Iowa. Funding for the work is shared with the US Air Force.